Silicon Run I.2 - An Educational Film about Integrated Circuits

Integrated circuits, and the computers they drive, introduced a new era in electronics. Each year faster, more powerful computers are produced increasing the demand for a skilled work force and an educated public. Increasing an awareness about manufacturing processes in the semiconductor and computer industries is an educational challenge_one which is hindered by the loss of visual imagery due to the inaccessibility of industrial sites to students, educators and the public. The SILICON RUN two-part series addresses this educational challenge by capturing the rich images of manufacturing on film/video to provide a clear overview of semiconductor and computer manufacturing. SILICON RUN I, produced in 1986, explores crystal growth, the effects of doping, CMOS transistors, and the design and fabrication of IC wafers. The recently completed SILICON RUN II continues with testing, packaging, printed circuit board and system assembly, and multi-chip module technology. The series is being used for education and training; thousands of students in universities, colleges and technical schools are viewing these films/videos every year. The many changes in technology since the completion of SILICON RUN I make it necessary to update the first film with the production of SILICON RUN I.2. The goal of this project is to re-film the industrial manufacturing footage so the series can continue providing students with viable information about today's manufacturing. Responses from recipients' surveys overwhelmingly show that the series is an asset to undergraduate education.